Dissertation Research: A Spatial Analysis of Classic Bonito Phase Chacoan Great House Communities

Vivian Under the direction of Dr. R. Gwinn Vivian, Ms. Ruth Van Dyke will collect data for her doctoral dissertation. She will examine site plans for 9 Bonito-style prehistoric sites which are located in New Mexico in the Chaco Canyon region. At seven of the sites, extensive surface remains and architectural ruins have already been mapped and Ms. Van Dyke will digitize the site plans. This will facilitate spatial analysis. At the remaining two sites Ms. Van Dyke and assistants will use a laser transit system to produce comparable data. With this information she shall search for similarities and differences between sites and compare these to central Chaco Canyon ruins. Within sites she will attempt to determine social relations among occupants and learn whether a hierarchical system existed. Factors such as room size, arrangement and accessibility will provide a means to address this question. In the centuries immediately preceding contact with the Old World, Southwest Native American societies developed complex social systems and built sites with multi-story architecture which accommodated hundreds of individuals. A center for such development was Chaco Canyon in New Mexico. It is clear that a strong relationship existed between Chaco Canyon and over 100 outlying communities since a system of prehistoric roads connects many of these sites. However archaeologists do not understand how the Chaco system functioned. They do not know whether the Chaco "center" is responsible for the establishment of the outlier or whether essentially independent communities cooperated and that the periphery, in effect, created the core. It is also not known whether these communities were essentially equalitarian or hierarchial. The question is important because it will shed light on the social processes which gave rise to this well known society. Through architectural analysis Ms. Van Dyke can address both of these issues. This research is important for several reasons. It will provide data of interest to many archaeologists. It will shed new light on the development of social complexity and will assist in the training of a promising young scientist.